Role of Lipid Metabolism in Light-Mediated Circadian Rhythmsin Plants

Most organisms show circadian (circa=about; diem=day) rhythms in a multitude of cellular functions and organismal behaviors. A circadian clock controls the biological timing mechanism coupling the physiology and biochemistry of the organism to changes in the daily environmental cycle, particularly light and temperature. The coordinated action of circadian rhythms is dependent on communication between cells and the interpretation of signals from the environment (e.g. light). In contrast to the case in animal systems, little is known in plants about the mechanism of the conversion of signals from the environment and adjacent cells into cellular responses. This project will continue studies on how light reception and the circadian clock are coupled to responses. This research has implications for understanding of plant responses to a variety of signals which are highly significant in plant growth and development including stress, hormones, and gravity as well as light. These studies involve two plant models. The tropical legume Samanea saman exhibits a circadian rhythm of leaflet movement while the single- celled, flagellated alga Chlamydomonas reinhardtii exhibits a circadian rhythm of phototaxis (movement in response to light). Both rhythms are controlled by a light-responsive circadian clock. The hypothesis that lipid metabolism is involved in mediating the effects of light and the coordination of plant responses to the circadian clock will be tested.